Student Travel Support for the 2011 ACM SIGPLAN PLDI Conference

This grant provides travel and subsistence to students so that they can attend the Symposium on Programming Language Design and Implementation (PLDI), which this year is being held San Jose, California in June 2011 as part of the Federated Computing Research Conference (FCRC). PLDI is a top conference in the field of programming language and compiler technology. Attending enables students to hear the latest results in the field, meet with other researchers, and build community with the next generation of researchers.